Functional Group Interactions in DNA-Protein Recognition

9507040 McLaughlin Recognition events involving enzymes, proteins or even simple ligands and sequences of single or double-stranded DNA are, in the simplest analysis, the result of specific ionic, hydrogen bonding and hydrophobic interactions present at the macromolecular interface. In order to determine the nature and the contribution of such intermolecular interactions to the observed high-affinity binding in such complexes, we will probe individual functional group contacts. To accomplish this study, incremental changes will be made in the functional group character (or array) present in a given nucleic acid recognition site; the effects of such incremental changes upon binding affinity, catalytic activity or simple structural parameters will be determined. Isosteric nucleoside analogues will be employed to introduce the incremental changes, by what amounts to "atomic mutagenesis" in functional group character. The simplest analogues involve the "deletion modification" of a native nucleoside in which a specific functional group- amino, carbonyl, imino or methyl - is excised and replaced with a hydrogen atom. The most useful analogues are those which do not otherwise alter native inter-strand hydrogen bonding or other helix-stabilizing effects. We will expand the current repertoire of analogues available to probe macromolecular recognition processes by developing analogues to probe contacts to functional groups present in the minor groove of a B-form DNA duplex as well as those to the internucleotide phosphodiester residues. These analogues will also permit the study of critical structural parameters such as the importance of the minor groove spine of hydration for the stability of B-form DNA duplexes, and the relation of this spine of hydration to the DNA curvature effect present in oligo A-T sequence. Three sequence-specific protein-nucleic acid complexes will be examined during the course of this project: the trp repressor-operator complex, the pre-initiation TBP-TATA box complex that is critically important for eukaryotic transcription, and the Gene-4 proteins responsible for the RNA primase activity in bacteriophage T7. These studies will help to further the understanding of DNA structure as well as sequence-specific protein-nucleic acid and ligand-nucleic acid interactions by elucidating the location and relative importance of functional group interactions that contribute to overall specificity and affinity in such complexes. %%% Recognition events involving enzymes, proteins or even simple ligands and sequences of single or double-stranded DNA are, in the simplest analysis, the result of specific ionic, hydrogen bonding and hydrophobic interactions present at the macromolecular interface. In order to determine the nature and the contribution of such intermolecular interactions to the observed high-affinity binding in such complexes, we will probe individual functional group contacts. These studies will help to further the understanding of DNA structure as well as sequence-specific protein-nucleic acid and ligand-nucleic acid interactions by elucidating the location and relative importance of functional group interactions that contribute to overall specificity and affinity in such complexes. ***